Purchase of 300-MHz NMR Spectrometer

The high field NMR Spectrometer is the single most important tool available to organic and inorganic chemists for structure determination and it is becoming a significantly useful technique for analytical chemists and biochemists. This award from the Chemical Instrumentation Program to the Department of Chemistry at Florida Institute of Technology, an undergraduate institution, will improve the ability of the Department to educate undergraduate students and will enhance chemical research on the following projects: 1. "Annulated Dewar Benzenes and ın!Paracyclophanes" 2. "Asymmetric Inverse Electron Demand Diels-Alder Reactions Between Furan and Chiral Vinyl Ethers" 3. "Addition of Diazocarbonyl Compounds to Furans: Mechanism, Scope, and Synthesis of Lipoxygenase Products" 4. "The Search for Drugs from the Sea."